Multiscale Modeling and Computation of Multiphase Energetic Materials

Multiscale systems abound in science and engineering. Their comprehensive treatment requires
accurate mathematical modeling of processes at the fine scales and a mathematical framework for
flow of information across scales. This proposal addresses this problem in the context of heterogeneous
explosives. These have a complex microstructure with fragments of the energetic material, voids and
pores existing within the granular aggregate. When subjected to a sufficiently strong shock, a detonation
is initiated. Although the crystalline homogeneous explosive has a high ignition threshold, relatively
weaker stimuli are sufficient to initiate the heterogeneous aggregate. This is caused by the appearance
of discrete sites, or hot spots, where burning commences and then spreads to consume the entire bulk.
The multi-scale nature of the system is a daunting obstacle in the way of any attempt at ab-initio modeling
of the detonation phenomena, at least at the present time. Two major approaches to mathematical
modeling have been proposed. Both generate continuum equations at the macro scale, wherein a certain
degree of homogenization is implicit and fine-scale processes have been included as subgrid models.
The first approach, typified by the ignition-and-growth model, treats the explosive as a homogeneous
mixture of two distinct constituents, the unreacted explosive and the products of reaction, at pressure and
temperature equilibrium. To each constituent is assigned an equation of state, and a single reaction-rate
law is postulated for the conversion of the explosive to products. The second approach explicitly
recognizes the two-phase character of the explosive mixture. The resulting model has separate
balance laws of mass, momentum and energy for each phase, plus a rule that allows compaction of
the solid phase driven by pressure difference between the phases. Terms representing interfacial
exchange of mass, momentum and energy appear, corresponding to the nonequilibrium processes of
reaction, drag and heat transfer. These models are systems of hyperbolic partial differential equations
that can be considered as generalizations of the Euler equations of gasdynamics. This proposal is aimed
at studies of existing continuum models as well as the investigation of fine-scale phenomena. The primary
objective will be to study how the strength and distribution of hot spots depend, in a quantitative way,
upon the constitutive properties of the explosive and the size of the igniting stimulus, thus providing
important information that can be used in attempts at multi-scale descriptions.

Many areas in science and engineering, including weather, combustion, pollution, and biological systems,
among others, involve behavior at the scale of observation that is determined by the events occurring at
micro scales. A thorough treatment of such systems requires, on the one hand, a fundamental
understanding and accurate mathematical modeling of processes at the micro scales, and on the other, development of a theoretical and computational framework that would facilitate flow of information
across scales, so that behavior at the scale of observation can be predicted reliably and accurately.
Attention to such systems is particularly timely and apt in the context of science-based stewardship of
explosive devices, and it is problems from this arena that form the core of this proposal.